Noncontact Processing of Fibers, Beams, Webs and Plates

9700973 Trumper Many industrial operations center on the processing of an elongated element moving axially through successive functional stations. In these processes it may be advantageous to be able to handle the product without directly touching it. The classes of materials which can be acted on with magnetic or electric forces without contact are addressed. This research is aimed to develop a general theory for electric and magnetic suspensions applicable to noncontact processing and experimentally verify the developed theory. The associated control theory, dynamic analyses, sensors and actuators which are needed to implement this new technology will also be developed. Noncontact processing provides many advantages for handling of materials that involve axial movements. The development of noncontact processing of materials via magnetic or electric suspension holds promise for future material handling and processing. Theoretical development of this new technology and its experimental verification are essential to advancing the existing state-of-the-art for this kind of equipment.